Digital Images of Environmental and Water Resources Engineering Principles and Practice

Engineering - Civil (54)
Our project builds on previous work (CCLI 9952577) to gather high quality digital videos and still photographs to enhance environmental and water resource engineering education resources for educators. The publication and dissemination of these materials provides educators with the instructions to utilize these high quality digital materials in a variety of educational settings such as overhead transparencies, PowerPoint presentations, and computer based instructions. Our materials have the potential for use in long distance education courses. We are providing these materials to help educators in K-12 to foster environmental education through our "What Do Environmental and Water Resource Engineers Design?" web site.

To obtain the digital images, we have gone on location, photographing existing
operations, renovations, and construction projects at a range small to large-scale projects.
Topics include unit processes in water and wastewater, hydraulic structures and open
channel flow. We are disseminating our text and video materials through a publisher and our Internet site.